The Role of U.S. Migration in the Economic Base of Rural Mexico

Abstract Narrative Professor Jones will gather information on income and expenditure patterns in 25 cities and towns in east-central Mexico. Information will be obtained from households, businesses, and local government officials. Particular attention will be devoted to gathering data on remittances received from workers employed in the United States, as such payments are a major source of the income in the region. The purpose of the research is to determine how migration to the United States, in conjunction with other external sources of income (for example, government investments), generate economic growth or decline in small towns in the region, and by extension, in non-metropolitan areas in third world nations generally. There is considerable disagreement in the social science literature over whether international migration produces beneficial or adverse effects in the regions migrants leave. Professor Jones's research will help resolve such disagreements.